Visualization for Software Understanding

The impact of this work will be threefold. The immediate result will be a prototype system for using software visualization for understanding. Educationally, the work will expose students to visualization as a means of understanding and get them interested and involved in working on the difficult problems inherent in visualization and understanding. Finally, the broader impact of this project will be to establish foundations for future software visualization and understanding efforts by solving some of the basic problems in these areas.